Regional Network Provider for NSFNET and The NREN (SM) Program

9320875 Mohta This award assists the CERFnet Regional Network in obtaining connectivity to other regional networks and to the rest of the Internet. The award, made under the guidelines published in NSF Program Solicitation 93-52, partially funds one T-3 (45 million bits per second) connection. Anticipated duration of the award is four years.